Some Problems in Nonparametric Regression

This project is concerned with a number of inference problems in
nonparametric regression analysis. Two of the problems being considered
involve the use of nonparametric smoothing methodology to assess the
lack-of-fit of certain types of parametric models. The development of such
lack-of-fit tests has been an active research area for about the last 10
years. However, effective methods for obtaining analytic assessments of
the relative performance of such tests has not, as yet, been determined.
One of the goals of this project is derivation of a framework for studying
the relative asymptotic efficiency of nonparametric smoothing based tests
using an asymptotic intermediate efficiency approach that makes it possible
to extend the concept of asymptotic efficiency into the nonparametric, or
infinite dimensional, alternative setting. The other lack-of-fit testing
problem being studied concerns nonlinear parametric regression models.
This problem is of particular interest since it provides a case where, in
some instances, the usual smoothing parameter asymptotics obtain under the
null model and thereby allow for the development of asymptotically
distribution free test statistics. Another collection of problems under
consideration is concerned with the derivation of suitable variance
estimators and associated heteroscedasticity diagnostics in the context of
partially linear models. Variance estimators are needed here for a number
of reasons which include their use in testing hypotheses about the
parametric components (e.g., treatment effects) of the model. A final
class of problems under investigation concerns computational methods for
boundary correcting smoothing spline estimators. These problems have
implications and applications to the problem of interval estimation in
nonparametric regression that are also being explored.

One of the most common approaches to statistical analysis involves the
fitting of data by a parametric model. Such models are frequently
developed through consideration of the physical nature of a problem under
study which may suggest a mathematical relationship or model for the data.
For example, in Biology there are mathematical models that have been
proposed for relating growth (of humans, animals, etc.) to age, while in
Meteorology there are mathematical models deriving from physics that
attempt to predict the development of storms and weather patterns. This
project is concerned, in part, with the study and development of various
statistical methods for assessing the validity of parametric models. The
methods being considered use flexible data fitting techniques known as
nonparametric smoothers to evaluate and compare fits obtained from a
proposed or postulated parametric model. Those smoothes can be used to
obtain statistical tests that can, in turn, be used to assess the accuracy
of a model in question. This is particularly important because an
incorrectly specified model can have potentially dangerous consequences in
that it can produce incorrect conclusions and predictions about the process
under study. In addition to the development of new testing methods,
techniques are being developed for the comparison of different tests to
determine which type of test performs the best in different situations that
might be encountered in practice. Other problems under study include the
development of computationally efficient methods for computing certain
types of data smoothers and methods for conducting statistical inference
when it may not be possible to completely specify a parametric model for a
set of data. The latter problem arises frequently in practice where it may
be reasonable to assume a particular parametric form for a portion of the
model corresponding, for example, to presence or absence of cancer in a
subject, but there is no obvious choice for a parametric model involving
other influential variables, such as the time of a subject's evaluations.